SGER: Regulation of Gene Expression in the Bacillus cereus Group

Understanding the basis of gene expression is vital if researchers are to dissect the complex biology of living organisms. The Bacillus cereus group represents a diverse collection of bacteria capable of living in a range of habitats and infecting a range of hosts. Spontaneously occurring phenotypic variants are being isolated and characterized with a view to providing insights into how these organisms regulate gene expression. A combination of traditional microbiological techniques coupled with DNA-based micro-array technology will be employed to uncover the basis of each variant providing fundamental data of value to researchers working in this area.